SaTC: CORE: Small: Formal End-to-End Verification of Information-Flow Security for Complex Systems

Protecting the confidentiality of information manipulated by a computing system is one of the most important challenges facing today's cybersecurity community. Many complex systems, such as operating systems, hypervisors, web browsers, and distributed systems, require a user to trust that private information is properly isolated from other users. Real-world systems are full of bugs, however, so this assumption of trust is not reasonable. The goal of this proposed research is to apply formal methods to complex security-sensitive systems, in such a way that we can guarantee to users that these systems really are trustworthy. Unfortunately, there are numerous prohibitive challenges standing in the way of achieving this goal. One challenge is how to specify the desired security policy of a complex system. In the real world, pure noninterference is too strong to be useful. It is crucial to support more lenient security policies that allow for certain well-specified information flows between users, such as explicit declassifications. A second challenge is that real-world systems are usually written in low-level languages like C and assembly, but these languages are traditionally difficult to reason about. A third challenge is how to actually go about conducting a security proof over low-level code and then link everything together into a system-wide guarantee.

In this effort, the PI proposes to design and implement a new set of formal techniques and tools for overcoming all of these challenges. First, the PI will develop a new methodology for formally specifying, proving, and propagating information-flow security policies using a single unifying mechanism, called the "observation function." A policy is specified in terms of an expressive generalization of classical noninterference, proved using a general method that subsumes both security-label proofs and information-hiding proofs, and propagated across layers of abstraction using a special kind of simulation that is guaranteed to preserve security. Second, to demonstrate the effectiveness of the new methodology, the PI will build an actual end-to-end security proof, fully formalized and machine-checked in the Coq proof assistant, of a nontrivial concurrent operating system kernel. Third, the PI will also demonstrate the generality and extensibility of the methodology by extending the kernel with a virtualized time feature allowing user processes to time their own executions. The goal is to prove that user processes cannot exploit virtualized time as an information channel. The technology for building certified secure system software will dramatically improve the reliability and security of many key components in the world's critical infrastructure. It will advance human knowledge in the specification and understanding of software and catalyze a cultural change in U.S. universities by pushing new courses on formal methods into the existing cybersecurity curriculum.